ITR: Cryptography: from user needs to protocol design

Cryptography is a powerful security tool that has not reached its
full potential in applications.
This project investigates approaches to making cryptography easier to
use at multiple levels: easier for the protocol designer, for the software
applications, and the policy maker. The project is naturally divided
into three areas, roughly corresponding to the above list:
- The study of formal verification methods for protocol design. These
methods will help the designer to make sure that protocols meet the
robust security standards accepted by the cryptographic and complexity
theory communities.
- The design of versatile cryptographic primitives whose performance
can be tuned to the needs of specific applications. This includes the
analysis of cryptographic primitives with respect to modern efficiency
and security measures, e.g., history independence, incrementality,
forward security, and combined uses of the above.
- The analysis of the security and privacy desires of individual users
and policy makers, and the study of innovative solutions to their problems.
For example, the project explores the design of identification cards that
provide secure identification without violating the privacy of the users.

Broad impact: Security is vital to ensure public confidence in the information
infrastructure, and cryptography is a potent tool for computer security.
Yet, cryptography is currently under-utilized and frequently misused.
By making cryptographic tools easier to use and understand, the project
aims to facilitate increased and better informed use of cryptography.
The project also aims to contribute to the national debate on appropriate
uses of information technology, and, in particular, explore ways to
protect individual privacy without damaging national security. Finally, the
project will contribute to the education of cryptographic specialists
who can communicate clearly with non-specialists, such as implementers and
legal experts.